Efficient Operation and Control of Power System Networks with Increased DG Penetration

Efficient Operation and Control of Power System Networks with Increase Distributed Generation Penetration
ECCS No: 0901851

ABSTRACT

The objective of this research is to develop insight into modeling of Distributed Generation (DG) particularly Renewable Energy Resources for network penetration, incorporating MW and MVAr demand response under load variability; to develop a value based optimization tool for integration of DG interconnection; to develop new performances metrics for evaluation of reliability, efficiency and congestion management of power system . The approach is aimed at developing improved models of DG and loads for grid penetration, Renewable Energy Resources response to demand system and control data approximate and determination of limits as input to overall optimized problems design of performance indices, metrics, and system studies for different scenarios associated with DG for optimum energy of the distribution or sub transmission.

Intellectual Merit: The research will use a computational approach to evaluate the impact of DG on network operation. A preferred method of marginal benefits of DG as a function of Location Marginal Price for voltage stability changes will be developed utilizing interior point and integer programming extensions. The robustness of the integrated scheme will be tested on a benchmark system.

Broader Impacts: The research will enhance optimization techniques for energy systems, thus improving system efficiency. It will further provide a contribution to the development of the autonomous Smart Grid under increased penetration of DG including alternative energy options. This is of benefit for the Nation's energy security and quality of life. The project will further facilitate training of minority students and have impact on educating the future power and energy workforce.